Evaluation Methodology for Image Testbed and Content-Based Retrieval

The project aims at developing an evaluation methodology for content-based
image retrieval. The research involves: (1) Measurement of the complexity of
image testbeds which can be used to quantitatively determine the degree of
difficulty in retrieving images from the image testbeds, and (2) Comparison
of the performance of different retrieval approaches which can quantitatively
give an objective ranking of the performance of the retrieval approaches.
The project designs a general framework of image feature representations
which can be used as a vehicle to conduct statistical analysis on images and
forms a basis for establishing the evaluation methodology. Using this framework,
the evaluation method can measure the complexity of the image databases by
their cross entropy and rank the retrieval approaches by their cross entropy
with respect to a particular testbed. The image testbeds can thus be compared
with each other on their complexity in supporting image querying. Furthermore,
the retrieval techniques can be compared with each other without using queries
so the human subjectivity is avoided. The algorithms developed in this project
will be a valuable asset for the community to eventually establish a general
theory of the evaluation methodology for content-based image retrieval research.